CSR: Small: Rethinking the Memory Hierarchy

Modern multicores are designed around complex memory hierarchies that
achieve high performance with a high cost in design complexity and
efficiency. The reason is that delaying the memory access just a few
cycles has an unacceptable performance impact. This proposal decouples
the memory operations in non-critical and critical. The critical
component is allowed to be incorrect which results in a system with
power savings, simplifications in the memory hierarchy, and even the
removal of complex memory coherence. The proposed sequential
consistency model allows simple programming models without performance
or power consumption impact.

This proposal addresses the challenge of excessive complexity in modern
multicore memory hierarchy. This complexity results in a power waste and
difficult programming models. For modern systems, the memory hierarchy
represents over half of the power. The proposed decoupled execution
allows an energy efficient implementation by moving the complex
operations out of the critical path. Furthermore, the proposed memory
hierarchy allows for simpler parallel applications because it avoids
complex consistency models commonly used. This proposal solution allows
for an efficient implementation of the simplest consistency model
available. Overall, the PI hopes to make fundamental advances toward
energy efficient and simpler to use memory hierarchies.